Temporal Processing in the Auditory System: A Nonlinear Dynamics Approach with Theory and Experiment

Rinzel
0078420
The neural computation by the mammalian auditory system to
localize low frequency sound sources relies on processing in the
brain stem. Neurons and circuits there, in the medial superior
olive (MSO), have specialized biophysical properties for
processing and preserving precise timings. These neurons have
distinctive firing properties. When a steady stimulus is
presented they fire only once, at stimulus onset; many other
types of neurons would behave tonically, firing throughout the
stimulus presentation. This property of phasicness is believed
crucial for the MSO cell's role in precise temporal processing.
In contrast, tonic cells are assumed to be less capable of
tracking rapidly changing signals. The MSO cells have a special
potassium current, IK-LT, that underlies their phasic behavior.
The investigator and his colleagues systematically study how the
temporal processing ability of a neuron changes as the neuron is
transformed from phasic to tonic mode, say by gradually adjusting
the strength of IK-LT (using pharmacological blockers and
electronic methods of re-introducing the blocked current). When a
cell is in phasic mode does it track a time-varying signal
better, or does it perform better coincidence detection, than
when it is in tonic mode? The research combines both experimental
and theoretical approaches. The experiments involve electrical
recording from individual MSO neurons while stimulating them with
periodic and other time-varying signals. Various quantitative
criteria are applied to assess the quality of temporal
processing. From the theoretical side, biophysically-based
mathematical models are developed that mimic the MSO neurons,
including a term for IK-LT. The model's performance for temporal
processing is evaluated just like the real cells. In addition,
concepts from nonlinear dynamical systems are applied in order to
reveal and understand the underlying mathematical structure.
This mathematical understanding will shed light on the
significance of phasicness in other neural systems where the
mechanism might not involve IK-LT. This project also explores the
influence of randomness on the temporal processing abilities.
Some randomness is intrinsic to the auditory nervous system, and
it is believed to be functionally important. Without sources of
variability, these nonlinear neuronal systems tend to phase-lock
too well, impairing a system's ability to perform discrimination
tasks. The investigator therefore also assesses the effects of
randomness on the temporal processing power of phasic and tonic
cells and on the theoretical models. This work seeks to test
whether the commonly accepted notion, that phasicness enhances
temporal processing power, passes a set of quantitative criteria
and, if so, to develop a theoretical foundation that supports the
notion and that extends to other neural and possibly some
chemical and physical systems as well. A related subproject is to
develop computational models that help explain the dynamic
effects seen experimentally as interaural phase (or amplitude or
frequency) is varied dynamically. A deeper understanding of some
surprising effects, as seen in the auditory mid-brain, should
contribute to developing a theory for how motion of sound sources
is analyzed in the brain.
It is believed that some neural computations involve
cellular and circuit properties that enable encoding and decoding
based on precise timing of action potentials. Sound localization
in the auditory system offers a compelling example. It serves as
the case study for this research, that seeks a more qualitative
characterization of cellular properties that correlate with
precise temporal processing. Many cells in the auditory brain
stem contribute to the system's ability to detect coincidence of
interaural signals. These neurons have distinctive firing
properties. When a steady stimulus is presented they fire only
once, at stimulus onset, while neurons of many other types will
continue to fire until the stimulus is turned off. This property
of phasicness is believed crucial for precise temporal
processing. In contrast, tonic cells are assumed to be less
capable of tracking rapidly changing signals. The biophysical
basis, a special potassium current, IK-LT, appears to underlie
phasicness in the brain stem neurons. This project systematically
addresses how the temporal processing ability of a neuron changes
as the neuron is transformed from phasic to tonic mode, say by
gradually adjusting the strength of IK-LT. When a cell is in
phasic mode does it track a time-varying signal better, or does
it perform better coincidence detection, than when it is in tonic
mode? The research combines both experimental and theoretical
approaches. The experiments involve electrical recording from
individual neurons in vitro while stimulating them with periodic
and other time-varying signals, including random components. From
the theoretical side, biophysically-based mathematical models are
developed that mimic the neurons, including a term for IK-LT.
Various measures are applied to the computer and cellular models
to assess reliability and precision of processing. In addition,
concepts from nonlinear dynamical systems are applied in order to
reveal and understand the underlying mathematical structure. This
understanding will enable us to generalize about the significance
of phasicness to other neural systems where the mechanism might
not involve IK-LT. A related subproject is to develop
computational models that help explain the dynamic effects seen
experimentally as interaural phase (or amplitude or frequency) is
varied dynamically. A deeper understanding of these surprising
effects, as seen in the auditory mid-brain, should contribute to
developing a theory for how motion of sound sources is analyzed
in the brain. This project is supported by the Applied
Mathematics and Computational Mathematics programs and the Office
of Multidisciplinary Activities in MPS and by the Computational
Neuroscience program in BIO.